Research Opportunity Award: An Investigation of the Effectsof Total Body Fatigue on Human Reliability

ABSTRACT Crumpton EEC-9725904 Mississippi State This award provides support for a two-year, Research Opportunity Award to Mississippi State University. The overall goal of this research project is to evaluate the effects of the total body fatigue on human reliability. The research work will be performed at the I/UCRC on Ergonomics at the Texas A&M University, by an Assistant Professor from the Department of Industrial Engineering at Mississippi State University.